X-ray Scattering Studies of Interfaces Between Two Immiscible Electrolyte Solutions

Abstract
CHE-0615929
Schlossman/Illinois-Chicago

With the support of the Analytical and Surface Chemistry Program, Professor Schlossman at the University of Illinois-Chicago, and Professor Vanysek at Northern Illinois University and their coworkers, are addressing long standing questions of the structure of electrified liquid-liquid interfaces. Using a combination of small angle X-ray scattering, X-ray reflectivity, and electrochemical probes, the structure of the neat interface between immiscible liquids, and that interface modified by surfactant molecules, is being examined. The results of this fundamental work will impact our understanding of membrane transport processes, separations processes, and drug delivery design. Students working on this project are exposed to a broad range of interdisciplinary issues in research and education.

The structure of the liquid-liquid interface is a long standing question in electrochemistry and physical chemistry. Professors Schlossman and Vanysek are carrying out detailed electrochemical and X-ray scattering measurements that are providing answers to these structural questions. Fundamental knowledge from this work will impact our understanding of biological membranes, sensor designs, and drug delivery systems.